Passenger Airbag Hidden Seam Instrument Panel Through the Utilization of High Energy Device

This SBIR Phase II research focuses on a high energy device that can cut the skin and foam of an automotive instrument panel surface in an emergency activation of an airbag. The cutting action is effected by the release of stored chemical energy either by detonation and/or heat deflagration. The fabrication concept uses a paint slurry printed onto the back surface of an instrument panel directly on an intermediate membrane or on the airbag door substrate. Current passenger airbag technology leaves a visible appearance of the airbag in the front surface of and instrument panel. The technology under this award will improve safety, appearance, and flexibility in locating the cut without adverse effect on reliability of the airbag or on other instrument panel parameters.